Lab on a Chip: Integrating Microfluidics Into the Applied Engineering Curriculum

The goals of this project are to supplement existing Engineering Technology courses with microfluidics-based laboratories and projects, create new microfluidics-focused courses for Lab-on-a-Chip technology, and develop facilities and resources for supporting microfluidics-based Senior Design Projects. The project is providing students with microfluidics-based learning experiences that are essential for students to develop a better understanding of micro-scale and nano-scale processes and techniques. The project efforts have potential broader impacts in many branches of engineering (such as mechanical, electrical, chemical, and materials) and sciences (such as chemistry, physics, and biology). The course materials developed from this project are disseminated to partnering community colleges and regional middle and high schools.